Arctic Survey on Adaptation to Climate Change

This project is a follow up to a previous project "Climate Change
Adaption in High Latitude Rural Development Planning." The funding will enable the researcher to use
the successful methodology developed during the 2011 research season to. The original
project funded the survey of over 80 municipalities in Sweden, Finland, and Norway
using a mixed method of face to face interviews and web-based survey. However, the
web-based survey response was much lower than anticipated and the face to face
survey interviews were more productive than anticipated. This award will allow the PI to
increase the response rate and the data gathered by completing an additional 40
interviews face-to-face from the originally planned web-based survey.